Collaborative Research: Plant discovery in the southern Philippines

The Philippines archipelago, comprising over 7500 islands, is known to contain high levels of unique plant and animal diversity but several of the islands, especially Visayas and Mindanao in the south of the country, still need to be intensively sampled. Many animal and plant species, including potential crop plants, await discovery and description even as extensive areas are threatened by deforestation. This four-year project will document and describe land plant and lichen diversity in the southern Philippines through a series of large field expeditions followed by taxonomic study and formal description. The project team will document the occurrence and abundance of diverse plant species through a combination of physical museum collections and high-resolution photographs. All images and locality data will be placed online in easily searchable formats. The project will also develop a DNA repository of collections made during the field expeditions for future genealogical studies. Project data will be used to assemble species inventories in different areas of the southern Philippines to both identify biodiversity hotspots and prioritize land management decisions. Diverse training in field and laboratory methods will be provided to undergraduate and graduate researchers in Texas and North Carolina to prepare them for diverse science careers. U.S. high school students will learn about biodiversity through a project-based curriculum that includes exposure to collections, digital data, and spatial analysis. Outreach, including online interactive programs through the Botanical Research Institute of Texas (BRIT), will disseminate research findings broadly within the U.S. and the Philippines to both scientists and the public.

This botanical survey of the southern Philippines will be conducted through eight major field expeditions. Herbarium specimens will be digitized and freely disseminated along with associated metadata and images of both living in-situ and museum specimens derived from the collections generated by the project. Collections will be analyzed using a combination of morphological and molecular systematic approaches to produce a diversity of taxonomic products, including revisions, regional annotated checklists, and multi-entry keys. Project data will be used to characterize patterns of species richness and endemism and test biogeographic hypotheses associated with the effect of Pleistocene land conformations on the Philippine flora. The project will discover new species, rediscover poorly known species, and document new species records for the Philippines.